Designing and Implementing Adaptive Distributed Systems

An adaptive computing system is one that evolves its behavior based on changes in the environment. For an adaptable system built on a distributed architecture where multiple machines are connected by a nework, such changes can range from site failures to updated application requirements. The evolutionary action taken when a change occurs can vary as well, ranging from dynamically reconfiguring the system software to maintain the same service guarantees under changed conditions, to negotiating new service guarantees with the application. The goal of this project is to develop fundamental new techniques for designing and implementing adaptive distributed computing systems. The specific focus is on providing a distribution support layer, a software layer implementing strong execution guarantees regarding the distributed state of the application, that can adapt to changes. The research concentrates on two lines of investigation: (1) the development of a conceptual model for systems of this type and (2) a new approach to implementing adaptive distributed systems based on fine-grain code modules called micro-protocols. The framework is being extended to support dynamic evolution of software, including reconfiguration, dynamic code linking, and runtime code generation. ***